Gordon Conference on Particle Solid Interactions, August 1994, Plymouth, New Hampshire

9403365 Cruickshank The conference will investigate the use of ion beams in the study of basic condensed matter physics phenomena (such as particle scattering) and the potential for analytical applications (such as Rutherford backscattering and proton induced x-ray emission). In addition, the conference will feature the use of ion beams as tools for the modification of materials (such as sputtering and implantation). The potential use of ion beams for tumor surgery and for inducing other modifications in biological materials will also be examined. % % % % The conference will investigate the use of ion beams in the study of basic condensed matter physics phenomena (such as particle scattering) and the potential for analytical applications (such as Rutherford backscattering and proton induced x-ray emission). In addition, the conference will feature the use of ion beams as tools for the modification of materials (such as sputtering and implantation). The potential use of ion beams for tumor surgery and for inducing other modifications in biological materials will also be examined. ***